NMR Spectroscopy: A Tool for Infusing Experiential Investigation into the Community College Chemistry Curriculum

Chemistry (12) A 60 MHz continuous wave nmr is being upgraded to a FT instrument with C-13, P-31 and other nuclei capabilities for use throughout the chemistry curriculum. The improvement in nmr capabilities allows the incorporation of more inquiry-based laboratories and hands-on experience with the acquisition of nmr data and the elucidation of chemical structures.

The instrument is being used in both the science major's course sequence track of general, organic and biochemistry and in the non-science major's track of general and organic/biochemistry courses intended for such health care pre-professionals as nursing, dental hygiene and radiation technology. In all courses the Process Oriented Guided Inquiry laboratory (POGIL) mode of instruction is being implemented.